QnTM: Quantum Computational Learning

Intellectual merit
The proposed research described in the .rst bullet above will substan-
tially extend our current understanding of the information-theoretic capabilities and limitations of
quantum learning algorithms.The proposed research described in the second bullet will extend our
understanding of what can be learned by computationally e .cient quantum algorithms.

Broader Impact
This research plan is closely integrated with a plan to achieve broader impact through
education which involves training students and broadly disseminating research results.Highlights
of the plan to achieve broader impacts include:(a)developing advanced courses in computational
learning theory at Columbia University (these courses will be largely project-oriented,and the
PI will encourate students to pursue projects at the intersection of learning theory and quantum
computation);(b)advising and guiding graduate students in their development as researchers and
educators,and actively working with advanced Ph.D.students to perform the proposed research;(c)
widely disseminating the results of the PI 's research through a range of di .erent mediums,including
talks,conference and journal publications,and survey articles on quantum computational learning.